Time Travelers: Rediscovering the Past

WQED and the Pennsylvania State University have created a new archeology series titled Time Travelers: Rediscovering the Past. This eight part series will present in compelling terms the recent scientific innovations in archeology and how new techniques have added startling insights into past civilizations. The programs are aimed at the general public and will reach an estimated 7,000,000 people. The series is thematically organized around vital issues such as: New Worlds; Great Spirits; Scribes and Subscriptions; The Artisan; Power and Prestige; The Hearth; Realms of the Maya; and Collapse. A major traveling museum exhibition will parallel the series and a trade book will be developed. The Annenberg/CPB project has authorized $2 million towards production and development of instructional materials for use as a college level course. WQED has an outstanding track record in development of television series. They have won over 100 national awards in the past ten years including ten Emmys and a Peabody award. The have a distinguished Advisory Committee to oversee accuracy of content. This series is a well designed, comprehensive and effective presentation of a most "visual" discipline. Reviewers were all enthusiastic about the series and characterized the production as innovative and thoughtful.